Workshop on Nonlinear PDE and Applications to Materials: A Proposal for Graduate Student Support

The award will fund graduate student participation in a workshop
on "Nonlinear Partial Differential Equations and Applications to
Materials", to be held April 30 -- May 2, 1999 at the University of
Minnesota. The speakers invited to the workshop will include modelers,
mathematical analysts, numerical analysts and materials scientists.
Specific topics which may be expected to come under discussion include
microstructure, multiple time scales, widely varying length scales,
viscosity methods and nonlinear homogenization. All of these topics
have proved to be of value in mathematical models of materials.

This will be a thoroughly interdisciplinary workshop, in which
experts from rather different scientific disciplines (materials
science, computer science, solid-state physics and mathematics)
will be brought together to discuss problems they have encountered
separately, but may have approached using only the tools which are
familiar to their specialized scientific group. In this way, the
power (and limitations) of these tools will be made clear to other
experts and to the graduate students present. Mathematicians need
to be well informed about the insights which have emerged from the
study of materials, and materials scientists need to learn about
the best techniques which have emerged from mathematical investigations.
Talented graduate students from across the country who are planning
to work in areas related to the workshop will be encouraged to apply
for support so they may attend. The graduate students of today, who
will become the research leaders of tomorrow, will benefit deeply from
observing at first hand this interaction of mathematical theory
with an important area of application.